Groundwater Remediation Design Using Fuzzy Sets and Fuzzy Logic

9700639 Pinder This is an award to provide support for research on an approach to engineering design of systems for addressing groundwater pollution problems by a mathematical procedure that takes into consideration subjective information in applying mathematical models describing groundwater models movement in aquifers to design of systems for decontamination of groundwater aquifers. The investigator plans on defining and formulating a set of rules that improves the description of the relationship between exposure to low doses of contaminated groundwater and potential health-based risk-issues. These rules will be used in identifying engineering design constraints that must be taken into consideration in generating least-cost solutions to restoration of the quality of contaminated groundwater aquifers. Implementation of the rules to define the subjective constraints will be followed by their introduction into groundwater flow and transport models that can be used to formulate optimal procedures for restoration of aquifers. This research is expected to advance the state of knowledge by which perceptions of qualitative concepts such as risk, danger and importance can be incorporated into the process by which engineers design procedures for restoration of the quality of groundwater in aquifers. Results of this project are also expected to contribute toward potential use of the procedures developed in addressing groundwater quality restoration problems to solution of other environmental engineering design problems. ***